Beginnings: Biotechnology Industry Opportunities, Professional Readiness, and Employment Program

The Biotechnology Industry Opportunities, Professional Readiness, and Employment Program (BIO-PREP) will serve undergraduate biology, biological sciences, and chemistry majors by increasing their awareness of and preparedness for careers in biotechnology. Students in these majors often enter university with the intention of entering healthcare fields due to familiarity with those career opportunities. This lack of awareness of the breadth of possible careers leads to a shortage of scientific workers in bioscience fields. Even when students do know of biotechnology, many are unable to leave paid jobs for unpaid summer internships. BIO-PREP will allow students to understand their postgraduate career options and build the skills and confidence necessary for success; a benefit both to students and to the biotechnology sector seeking to hire qualified scientific workers.

BIO-PREP will implement a biotechnology career explorations course paired with laboratory skills training and micro-credentialing. These activities will enable participants to build technical skillsets, to build confidence around being prepared to work in industry and will increase connections with employers. The program will also feature peer and alumni mentoring, internships with industry partners, and financial assistance. The program will be evaluated to determine the efficacy and impact on students and their career choices, mastery of technical skills by students completing the curriculum, and development of soft skills valued by employers. This program can be replicable in other biotechnology-heavy regions, and curriculum materials and project results will be disseminated to industry and education stakeholders.

The ExLENT Program, supported by the NSF TIP and EDU Directorates, seeks to support experiential learning opportunities for individuals to increase their interest in and access to career pathways in emerging technology fields.